Improved Laboratory Instruction in Analytical Techiques and Research for Undergraduate Chemistry/Biochemistry Majors

This project will introduce high performance liquid chromatography (HPLC) into biochemistry, organic chemistry, and instrumental analysis laboratory courses and research projects for undergraduate students at Chestnut Hill College. Chemistry and biochemistry majors will use a gradient HPLC system to study parameters in chromatographic separations; to separate and analyze natural products, pharmaceuticals, and various organic compounds which the students synthesize; and to pursue more varied research projects. Working with this important modern technique will broaden substantially the students' laboratory experience, and will help Chestnut Hill College continue to prepare women for careers in chemistry and biochemistry.